Collaborative Research: Time-Dependent and Inhomogeneous Flows of Entangled Polymeric and Micellar Networks

Cook
DMS-0807395
McKinley
DMS-0807330

In this collaborative project, the investigators and a
colleague study the motion of complex fluids, especially flows of
wormlike micellar fluids and of monodisperse polymer solutions in
a variety of geometries and under a variety of forcings.
Surfactant systems consist of amphiphilic molecules with
hydrophilic heads and hydrophobic tails. Under suitable chemical
conditions these molecules can self-assemble in aqueous solution
into long aggregates known as worm-like micelles. These long
flexible structures entangle to form a network and lead to
viscoelastic properties similar to those of polymer melts and
concentrated solutions, but with the added complexity that the
worms continuously break and reform (i.e. they are "living
polymers"). External deformations can enhance the local rate of
micellar breakage, thus the macroscopic flow affects the
microscopic structure which in turn further modifies the global
velocity field. Due to these multi-scale interactions these
fluids exhibit flow inhomogeneities even in simple geometries.
Development and analysis of new constitutive models and
comparison with experimental results is generating new insight
and understanding into the multi-scale nature of these flows and
of the influence of the evolution in the microscopic structure on
the macroscopic measurables. The governing mathematics is that
of a nonlinear system of partial differential equations
describing conservation of mass and linear momentum, coupled to
equations governing the number densities of the entangled
molecules and constitutive (stress) equations for each species.
Specifically, the investigators study a pair of two-species
network models that they recently proposed: a two species model
with chain scission and reforming effects (the VCM model)
physically appropriate for wormlike micellar solutions, and a
simplified non-interacting model (PEC+M model) appropriate to
monodisperse entangled polymer solutions. The investigators
study the time evolution of the solutions in strong extensional
flow and in rapidly time-varying flow using a combination of
asymptotics and computation as well as experiments. Approximate
closed form solutions are generated to enable an understanding of
the flows and of sharp spatial transitions (microstructural
boundary layers).

The investigators study the material properties of complex
fluids such as those constituting shampoos, liquid detergents,
molten plastics, and fluids utilized in enhanced oil recovery.
On the microscopic scale these polymeric fluids consist of large
aggregates or macromolecules and the shape and orientation of
these molecules control the properties of the fluid and how it
performs in the desired application. It is very difficult to
characterize these fluids experimentally because their flow
properties, unlike those of Newtonian fluids such as water,
become inhomogeneous even in simple geometries. This means that
the usual types of measurements (in which the fluid properties
are measured at the flow boundaries) are not sufficient to
understand and characterize the material response. The
investigators have formulated a new equation of state -- a
mathematical model -- that more fully describes the
microstructural properties of these fluids and how they flow.
They now investigate the predictions of this model in various
complex flows and compare this with experimental findings. This
in turn enables them to develop new means to probe and
characterize the properties of the fluids. The complex fluids
listed above are used commercially in a variety of geometries
that may involve both stretching flows (such as the motion of a
jet, flow out of a nozzle) as well as shearing flows (for example
pumping of the fluids in a pipe). To ensure that their
analytical and experimental results are relevant to researchers
in industry, the investigators investigate both steady and
time-dependent examples of both types of flow conditions.